Oceanographic Instrumentation

9988236
Rabalais
This award to Louisiana Universities Marine Consortium (LUMCON) will provide instrumentation for oceanographic research for use on R/V Pelican, a research vessel operated by LUMCON as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired is a fluorometer, which will be used to study chlorophyll concentration in surface waters using their automated shipboard flow-through seawater system. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the Gulf of Mexico, during 2000 and future years.
***